Computer Integrated Manufacturing Instructional System

9452080 Markowski The MSU-CIM project is designed to enhance laboratory instruction in a broad range of undergraduate courses by integration of product and process designing, manufacturing, assembly and management functions. The project integrates disciplines which are well established in the Manufacturing Engineering department. This project is being used for integration and modification of curriculum in a variety of existing courses, and for development of a new undergraduate course which demonstrates the fundamentals of CIM by hands-on lab projects. The system uses three CNC machine tools for machining a variety of products, and provides automatic assembly of the product and inspection. With an automatic storage and retrieval station and four robots, the entire manufacturing process may be run fully automatically. Product design and process planning is fully computerized and virtually-paperless. Creation and use of databases is also an integral part of the project.